Mathematical Sciences: Weak Convergence in Dynamical Systems

The principal investigator will continue in his new area of research, which is at the interface between probability and dynamical systems. In particular Lacey will consider the question of which stochastic processes can arise as limits of dynamical systems.